Probability and Natural Language Processing

One of the major problems in computer understanding of natural language is the ever present ambiguity. Words have multiple meanings, sentences can be grammatically parsed several different ways, noun phrases can refer to several possible objects in the text, etc. Typically it is not possible to make the correct choice because the others are logically impossible. Rather the correct choice is simply more plausible, or probable, than the others. This investigator will integrate the use of probability theory into language comprehension in order to better solve these and related problems (like plan recognition deciding on a story character's plans on the basis of the character's actions). In particular, the proposed system will use the various clues from the sentence as well as the context, to build up a Bayes network representation of the probability distribution. As in current work by this research the probabilities will be used to guide processing and eventually to completely clip less likely alternatives.